Computational Refinement and Existence Proofs for Singularities

9701540 R. Baker Kearfott During the past two decades, understanding of singularities, bifurcations and related phenomena, and relevance to the physical world have increased. At the same time, tools for bounding discretization and roundoff error have improved, to allow automatic result verification based on classical fixed point theory. Traditionally, such verification proceeds by linearization, then bounding with interval arithmetic. However, in methods developed to date, existence and uniqueness verification necessarily must fail when the system is singular at solutions. Goals of this project are to (1) develop new, simple and natural modifications to existing verification techniques, to prove existence and uniqueness when the nonlinear system is singular; (2) investigate the power of the resulting tools, first for finite-dimensional problems (algebraic systems), then for infinite-dimensional problems (differential and integral equations); (3) increase understanding of singularities. Many complex systems throughout the sciences and engineering, ranging from load-bearing civil engineering structures to ecological systems to human heart rythms, are modeled by sets of nonlinear equations that exhibit singularities and bifurcations. Such bifurcations correspond to changes in behavior as conditions (the load, a temperature, etc.) change. Understanding of such phenomena has blossomed in recent years, but analytical problems remain. This study will provide tools to enable an efficient and automated, yet mathematically airtight analysis. This in turn will lead to more predictability in the physical world.